Travel Support for U.S. Scientist Participation in the 25th Scientific Assem. of the Int'l. Assoc of Seism. & Phys.of the Earth's Inter. in Istanbul, Turkey, Aug.21-Sep.1,1989

This is a block travel grant in the amount of $40,000 for the support of approximately 30 U.S. scientists who will be attending the 25th Scientific Assembly of the International Association of Seismology and Physics of the Earth's Interior (IASPEI).